Exploratory Research on the Electrical Neutrality of Matter (Physics)

The rule that every elementary particle must bear an electrical charge that is zero or an integral or rational fraction multiple of the charge e of the electron, rests solely on experimental evidence. The limits placed by experiment will be extended to test this hypothesis. Any deviation observed will require a major restructuring of theory.